Analysis and Training of Neural Networks Using Voronoi Diagrams and Graph Decomposition

This proposal presents a novel solution to the multilayer neural network training problem - determining the connection weights of the neurons - using a very powerful construct from combinatorial geometry called a Voronoi diagram. It will also address the equally important problem of how to partition a neural network into smaller subnetworks which can then be used either individually or together to approximate the function of the original network.